Relationships Between Air and Snow Chemistry in Winter at Summit, Greenland

The research is a collaborative project among researchers at six universities. The researchers will extend their previous study of the record of atmospheric chemistry concentrations recorded I the glacial ice at Summit, Greenland form a summer-only study to a full year by adding a winter sampling program. The ice core record from the Greenland Ice Sheet Project (GISP2) has been analyzed for traces of atmospheric chemistry but the results cannot be fully assessed until a complete annual record of present chemistry is available because the largest signal in the ice core results form snow that accumulates during the winter months. A winter sampling program has been logistically impossible until this year. A complete annual cycle of the record of how modern atmospheric record from GISP2 ice cores for the past 110,000 years.